Theory of Electrons in Solids

9721444 Sham This is a renewal grant to fund a broad program of theoretical research on the electronic properties of condensed matter systems. A fundamental digital electronic device involves two states of the system. In a quantum system there is also the additional information of the phase difference of the wave functions for the two states. This additional quantum property is called the coherence. The importance of a coherent quantum device lies not just in the addition of one more piece of information, but in the propagation of the properties in a chain of such devices. For example, if each unit device is a logic gate, then the chain forms a quantum computer. Coherence dynamics is much studied in quantum optics. A logic gate using a trapped ion or an atom passing through an optical cavity has been demonstrated to work, but a long chain of such devices is impractical. A semiconductor heterostructure seems to be a more practical medium for a coherent quantum device. A theory of the physical processes which occur in the operation of a coherent semiconductor device constitutes the first research area. The issues germane to a quantum device are (1) addressing, (2) interaction, and (3) the various times in the process: onset, recovery, decoherence. The problem with applying the optically excited coherence to semiconductors is that the coherence lasts no more than a few picoseconds, and only at low temperatures. Neither condition enhances the prospects for a device. Ways of transferring the coherence to spin states with much longer decoherence time will be studied. Kikkawa et al. have found that doping of a quantum well and strong optical excitation make the optically excited spin memory several nanoseconds long, which persists even at room temperature. One possible explanation to be investigated is the polarization of the electron sea (from doping) by the optically excited electrons with a common spin direction. The Coulomb interaction effect create s a collective spin which is then not easy to perturb. The next step is to explore what interaction mechanism can be utilized for quantum coherence control. An electron optically excited leaves behind a hole. It has been suggested that such electron-hole coherence may exist in nature without laser excitation and that the collective action of many pairs may form a strongly correlated semiconductor. The second research area is to explore properties of such semiconductors and to look for likely materials. Of various classes of such correlated semiconductors, the most interesting possibility is electronic ferroelectrics. Large dielectric constants in a few samarium compunds are an encouaging sign. The electronic ferroelectrics would be more versatile than the conventional ferroelectrics for device purposes and the understanding of their strong electron correlation would be a piece of important basic physics. The third topic, related to the first one, is the theory of electrons carrying spins from a ferromagnet to a semiconductor. This is of relevance to the development of spin- dependent electronic devices, which would integrate magnetic devices with electronics. %%% This is a broad theoretical project to study the properties of semiconductor devices as components of quantum computers and other quantum devices. The properties necessary for new and novel states in matter will be explored and relevant materials identified. In particular, novel semiconductors will be investigated. ***